SBIR Phase I: Chitosan-Based Biopolymers as Additives to Oil Well Drillling Fluids

*** 9761273 House This is a Small Business Innovation Research Phase I Proposal. Technical advances in oil recovery and increased environmental stewardship are providing substantial new opportunities for drilling fluid additives which are environmentally-benign and which offer enhanced performance characteristics. We propose to examine derivatives of the natural polysaccharide chitosan as an alternative water-soluble viscosifying polymer in drilling fluids. Specifically, we propose to: (1) produce chitosan from crabshell wastes; (2) derivatize chitosan to yield polymers which offer low-shear-rate viscosities (i.e. have yield stresses) but which are shear thinning; and (3) perform laboratory tests to study the performance of the chitosan derivatives in simulated oil drilling applications. The project team for this study is a subset of a larger team which is examining how to commercially convert Maryland's crabshell wastes into chitosan in partnership with end-users who are developing large volume outlet markets for low-end chitosan. If successful, this research would lead to two commercial opportunities. First, large-volume markets would develop for high performance, environmentally-friendly chitosan derivatives as drilling fluid additives. Second, supplying large-volume chitosan markets would provide commercial opportunities to convert seafood wastes into a value-added products. ***